Middle and Secondary School Tracking: Determinants and Consequences

An understanding of how tracking in middle and secondary schools affects student learning is critical for informed decision-making about tracking practices. This study will show how tracking affects students who differ by gender, race, and prior achievement. Thus, it will reveal a source of potential inequities in our educational system. The research will also demonstrate how variation between schools in tracking structures and placement policies is a major, though largely ignored, source of school differences in students learning. The conceptual model will be tested on longitudinal data from two cohorts of about 2,100 students each, in several public, parochial, and private middle and secondary schools. Seventh through tenth grade data have already been collected on these students. The investigator will collect information on their last two years in high school in this study. She will conduct descriptive and inferential analyses to reveal the mechanisms that relate middle school tracking to opportunities for learning in high school.